U.S.-China Cooperative Research: A Study of the Structure and Deformation Behavior of Model Elastomers

This proposed research represents a collaborative effort, initiated nearly 11 years ago, between polymer scientists in China and the University of Massachusetts at Amherst. The Chinese principal investigators include Professors Wang of Beijing University and Professor Lu of Hainan University. Professor Hsu continues as the principal investigator from the University of Massachusetts. Professor Yang of Changchun Institute of Applied Chemistry will join as a co-principal investigator because of his complementary morphological studies which are requisite for the proposed research. The central focus of these studies continues to be thermal elastomers. This cooperative project originated because of the fundamental and practical interest in elastomers in both countries. Considerable effort has also been devoted to natural rubber (Professor Lu). Professor Wang has been principally involved with morphological studies of model polyurethanes. The principal emphasis of this U.S.-China cooperative research is focused on the structure and deformation behavior of elastomers, both natural rubber and synthetic thermoelastic polyurethanes Initial studies concentrated on characterization of natural rubber. China is currently the world's 6th largest supplier of natural rubber. Studies in Professor Lu's laboratory located in the tropics of most southern China, Hainan Island, have been focused on studies of natural rubber. The majority of these studies have been devoted to vulcanized rubber or the vulcanization process. Microstructure of natural rubber, particularly in its nascent state, has not been explored in detail. Relatively few studies have been directed towards obtaining a better understanding of the composition structure, and properties of raw rubber. This area of study is important as the composition and structure of natural rubber differs from synthetic polyisoprene in that the presence of functional groups on main chains and non-rubbery materials, such as proteins, can significantly affect rheological properties and processing conditions of rubber before the vulcanization process. The principal goals of this research are: 1. Clarification of the phase separated state; 2. Analysis of deformation behavior associated with both soft and hard segments (junctions); and 3. Exploration of the possibility of producing unusual linear and nonlinear optical properties by deformation through use of the highly conjugated poly(diacetylene)s. Fundamental assumptions employed in developing theoretical models of rubber elasticity will be investigated.